Computational Complexity Theory and Circuit Complexity

The goals of this project include: (1) Continued investigation of complexity classes related to the computation of the determinant and the rank of integer matrices. Such classes include probabilistic logspace and the class #L of nondeterministic logspace counting problems(for circuits); (2) Continued exploration of resource-bounded measure, particularly as it can be applied to small complexity classes such as P.